RESEARCH ON LOW-NOISE HOT ELECTRON HETERODYNE RECEIVERS FOR THE THZ RANGE

ECS-9729242 Karl Yngvesson Superconducting hot electron mixers for the Thz range will be explored, promising DSB receiver noise temperatures of 10x hf/k or less. These receivers will employ : 1. thin film NbN; and 2. new S-Sm-S devices, which have never been used for this purpose before. The mixers will be integrated with thin film antennas, and coupled through silicon lenses. The potential for focal plane arrays of such receivers will be demonstrated.